Embedded Systems for Feedback Mixing Control in Fluid Flow

Mixing in turbulent flows play an essential role in diverse engineering
applications. Beneficial non-equilibrium dynamics impact on engine
efficiency, durability, stability, and emissions, on reduced drag in
aircrafts and in naval vessels. The unique focus of this research is on
feedback regulation of active mixing control. Technical challenges are
an outgrowth of the complexity and sensitivity of fluid dynamic systems,
and require an integrated approach to modeling, information technology,
control theory, algorithm development, and software and hardware
implementation. Modeling will focus on dominant coherent structures,
periodicity, and concepts of Hamiltonian energy. Those provide also
possibilities for efficient parallel implementation on an embedded
system. Intended models will range from lumped point vortex models, to
purely phenomenologically derived I/O correlations of main structures.
Hybrid models arise naturally as a design framework, subject to (nearly)
periodic vortex generation and elimination. On a finer time scale,
hybrid models will be used as a means to parallelize spatially
distributed control and observer implementation. This project includes
collaborations with industry, government and academe. If successful,
this high risk-high yield undertaking will include both technology
transition in critical applications and developments of integrated
embedded systems and control design methods for interesting classes of
complex, nonlinear systems.